Archaeological Investigations of a Mississippian Period Production for Exchange System

Dr. Charles Cobb will conduct two seasons of archaeological site survey and excavation in the Mill Creek region of Southern Illinois. The region is important to archeologists because it contains quarries for stone which was manufactured into hoes. Finds from numerous other sites demonstated that these prized objects were then distributed throughout the lower Ohio and Mississippi River Valleys. Dr. Cobb will first conduct an intensive sample survey of the area to obtain information on the variety, distribution and function of sites related to digging implement production. In the second stage of the work he will excavate a small sample of sites to learn how actual production of the implements was organized. Materials collected will also help to date the sites and shed light on the subsistence practices followed. Recovery of exchange items such as non-local flint, galena, shell artifacts and copper will provide information on trade networks. Although they did not develop all the features commonly attributed to "civilizations", late prehistoric (ca. 900-1500 AD) societies in the American Midwest developed a high degree of social complexity in which individual groups were bound together into larger organized trade networks. Archaeologists have postuated that a tight link exists between the development of social complexity, political centralization and control of trade. Because Mill Creek contained such a valuable product, it makes an excellent region to examine this issue. Through his excavations Dr. Cobb wishes to learn how the production of stone hoes and their exchange was organized and functioned at both a local and an interregional level. This research is important for several reasons. It will provide insight into how complex societies were developed and maintained. It will yield data of great interest to many U.S. archaeologists.